Travel: International Conference on Complex and Differential Geometry

The International Conference on Complex and Differential Geometry (ICCDG) will take place at the International Centre for Theoretical Physics (ICTP) in Trieste, Italy, on May 25–29, 2026. The conference is organized in partnership with the Clay Mathematics Institute (CMI). This five-day conference will convene leading experts and early-career mathematicians from multiple continents who work in complex and differential geometry. Its primary goals are to disseminate recent research advances, foster interaction across subfields, and promote international scientific collaboration. The requested award will ensure a strong U.S. presence at this global meeting.

Complex and differential geometry have experienced significant advances in recent decades, yet many deep and far-reaching questions remain, with important implications for both mathematics and theoretical physics. Through plenary lectures, focused seminars, problem sessions, and informal discussions, the conference will provide U.S. researchers—both established and emerging—with new perspectives and techniques for addressing fundamental geometric problems. Participation by distinguished U.S.-based speakers supported under this proposal will help shape international research directions and reinforce U.S. leadership within the global geometry community. The meeting will also catalyze new international collaborations and strengthen opportunities for the next generation of U.S. geometers. No individual supported by this award will be selected or excluded based on race, national origin, sex, disability, or age. For more information, please visit https://indico.ictp.it/event/11144.